RUI: Theoretical Studies of Strongly Correlated Electron Systems

0097187
Kioussis
This grant continues Research at Undergraduate Institution (RUI) support for a theoretical study of the interesting and unusual behavior of a series of strongly correlated electron systems: elemental plutonium, its alloys, and the isostructural monopnictides and monochalcogenides of cerium and uranium; and, the electronic and magnetic properties of the one-and two-dimensional periodic Anderson hamiltonian.
%%%
This grant continues Research at Undergraduate Institution (RUI) support for a theoretical study of the interesting and unusual behavior of a series of strongly correlated electron systems including elemental plutonium and its alloys, and, the electronic and magnetic properties of the one-and two-dimensional periodic Anderson hamiltonian.
***